Numerical Modeling of Ice-Stream Flow on a Deforming Bed

This project is a two-year effort to develop a physically realistic ice-flow model of the flow band passing through ice stream B, West Antarctica. The model will explicitly treat water and till as well as ice. Earlier models do not consider the unconsolidated bed that exists beneath ice stream B or water balance. The proposed model will represent a significant advance in the field. Seismic data to be collected by investigators from the University of Wisconsin during 1987-88 will be used to test the model. The model then will be used to assess the stability of the West Antarctic ice sheet in light of possible anthropogenic climatic changes, and to test possible scenarios for deposition of sediments in the Ross Embayment.